Experimental Studies of Superfluid Helium Three

It is proposed to continue a program of high-precision measurements of the thermodynamic properties of superfluid helium three. Four studies are envisaged: 1) Resolve the discrepancy between measurements of the magnetization discontinuity at the A-B transition made by static (SQUID) and dynamic (NMR) techniques. 2) Settle the issue of what is the microscopic order parameter of the A phase. 3) Pursue study of the nature of the recently-discovered phenomenon of superheating of the A-B phase transition. 4) Continue our effort to numerically model our measurements of hydrodynamics in the A phase.